Doctoral Dissertation Research: The Politics of Inclusion: Patterns of Contention in the American South, 1954-65

This is an award under the Grants for Improving Doctoral Dissertation Research Program. This is a study of how economic development and competition for resources affected the reactions to civil rights protests in the American South. The study draws together theories of economic development and competition into a comprehensive explanatory model. It combines county-level event data from 1954 to 1965 with data from government sources and selected case studies based on local-level sources. %%% This study will add to our sociological understanding of how economic factors affect community reactions to collective protest. More generally, it will contribute to understanding the dynamics of protest and of resistance to change. In addition to the scientific gains to be achieved by the research, this award will materially assist a highly promising student in completing research for the Ph.D. dissertation. Thus it contributes to the future scientific manpower of the nation and the thorough training of the next generation of social scientists.